SaTC: CORE: Small: URadio: Towards Secure Smart Home IoT Communication Using Hybrid Ultrasonic-RF Radio

Recent years have seen the explosion of smart home Internet-of-Things (IoT) devices and platforms, underscoring the need to address security and privacy of smart home communications. The demand for IoT devices (e.g., smart speakers, locks, and activity trackers) is occurring while radio spectrum, a necessary ingredient for wireless service, becomes increasingly scarce. As a result, multiple wireless technologies coexist and compete for spectrum resources, resulting in degraded spectrum efficiency and security. This project aims to enhance the reliability and security of smart home networks by leveraging the security and energy efficiency properties of ultrasonic communication, and by integrating them with radio-frequency technology. The success of this project will result in a new communication system that can provide secure and reliable communication on two different types of spectrum - radio-frequency and ultrasound - to help alleviate the crowded radio frequency spectrum and prevent aggregated security attacks. The proposed project aims to significantly improve the security of smart home networks, and will also have a positive impact on education through the creation of new wireless security course projects and modules; provision of research training opportunities for undergraduate and graduate students of underrepresented groups; and broad dissemination of project results through high-profile tutorials, talks, publications, software tool kits, and open-source sites.

The goal of this project is to develop novel, practical and foundational solutions to secure smart home IoT networks. The research focuses on the following objectives: 1) Develop and assess the performance of a hybrid ultrasound/radio-frequency transceiver using a wideband ultrasonic transducer to enable secure and reliable IoT communication by leveraging phased acoustic array technology; 2) Ensure the robustness of IoT communications by developing multiple-input multiple-output (MIMO) interference cancellation and directional ultrasonic anti-jamming communication technologies; and 3) Design a location-restricted device authentication mechanism without the reliance on credentials by leveraging signal features of the ambient radio-frequency and ultrasonic signals, aiming for for immediate and trustworthy authentication of IoT devices. The proposed solution will be tested using large-scale simulations and experimentally tested via software-defined radio testbeds and ultrasonic radio prototypes. The project pursues advances in our understanding of security in smart home IoT networks, thereby providing guidance on the design of next-generation smart home systems.